Improved Methods for Macromolecular Modeling and Crystallographic Refinement

The goal of this project is to enhance molecular modeling of protein-DNA interactions and to develop an improved method for refining X-ray crystallographic data. The improvements proposed here will be incorporated into the AMBER set of molecular programs.